Languages and Verbal Arts of Ethnic Groups in Laos and Vietnam Speaking Northern Mon-Khmer Languages

9422542 The remote mountainous areas of Northern Laos and Northwestern Vietnam are home to a number of little-known ethnolinguistic communities speaking languages of the Northern Mon-Khmer family. Internationally isolated for decades, the area remains until now a virtual terra incognita to western scholars of linguistics, ethnography, folklore, and history. This project- to be carried out by an interdisciplinary, international team of researchers, working closely with colleagues from Lao and Vietnamese research institutions- will take advantage of new opportunities for collaborative field investigations in the two countries. The focus of study will be several ethnolinguistic communities whose members speak languages within the Khmuic and Palaungic branches of the Mon-Khmer family (i.e., the Northern Division of Mon-Khmer). The research, primarily descriptive and empirical in approach, will include eliciting lengthy word lists suitable for comparative study, as well as gathering other linguistic data; recording linguistic texts including songs, folktales, myths, ritual languages, play languages, and other traditional verbal arts; and interviewing community members about the traditions and history of each ethnicity. The research promises to make important contributions to understanding the linguistic and ethnographic history and relations not only of the particular ethnic groups studied, but of the region as a whole. The languages to be studied will also provide rich data for consideration of problems of interest to general linguistics such as the relations of register and tone, tonogenetic mechanisms and processes, person-referring forms (pronouns, kinship terms, and so on) and group-referring forms (ethnonyms and glossonyms), play languages and speech surrogates, and reduplication and parallelism.